Workshop on Monitoring for Climate Change Detection in the Americas, Vina del Mar, Chile, December 5-8, 1995,

9622505 Diaz This workshop will evaluate the capability of the meteorological observing networks of the Americas to address the following World Climate Research Programme (WCRP) questions: Is the climate warming? Is the hydrologic cycle changing? Is the atmospheric circulation changing? Is the climate becoming more variable or extreme? While meteorological observing networks are equipped to monitor weather, most are not designed to address questions of climate, including baselines, measurement uncertainty, and model validation. This workshop is designed to bring together the appropriate members of the weather monitoring and climate research communities in the Americas in order to identify the needs for a climate monitoring system. These needs include observational, data management, and data distribution aspects (including the identification of the critical climate variables to be included in such a system). This workshop will contribute to the effort of the Global Climate Observing System (GCOS) community in evaluating the observational needs for a global integrated climate observing system. This workshop will provide an excellent opportunity for the directors of national meteorological services and climate researchers to evaluate the current state of the weather data collection systems and their capacity to contribute to future climate research in the Americas. This workshop is being co-sponsored by three organizations: the Global Climate Observing System (GCOS) Program of the World Meteorological Organization (WMO), the National Oceanographic committee of Chile, and the National Science Foundation (NSF) on behalf of the Inter-American Institute for Global Change Research (IAI). The IAI is a U.S. initiative to stimulate cooperative research on global change issues among the scientific institutions of the Americas. The National Science Foundation is the U.S. Government agency designated by the White House to carry out U.S. resp onsibilities within the IAI. ***